AIT (U.S.) - CCNAA (Taiwan) Cooperative Research: Studies of Geometric Optimization and Related Problems

This is an 18 month cooperative research project proposed by Dr. Der-Tsai Lee, Northwestern University and Professor R.C.T. Lee, Taiwan Tsing Hua University, supported by the AIT (U.S.) - CCNAA (Taiwan) Cooperative Science Program. This project plans to study ways to minimize the paths between the points in one segment of a computer disk and those in another segment. This is an important problem in geometric optimization and computer computation. Professor Lee of Tsing Hua University is an expert in this area with the additional human and funding resources needed to carry out computer simulations. This is a mutually beneficial study of a set of problems for which there are currently no solutions. Advances in this area can benefit computing and automation industries.